Wear and Boundary Lubrication of Oxide Coated Magnetic Disks

In magnetic disk files and tape drives, the read/write element is separated from the magnetic medium by a thin air bearing. In present "state of the art" disk file, the air bearing flying height is approximately .33 um, and a reduction to less than .2 um is anticapated in the near future. At those small spacings, contacts between the read/write head and the magnetic medium are unavoidable. In addition contacts occur during start/stop of the file and during track seeking. Since these contacts cause wear of the head/disk interface, a thorough understantding of head/disk tribology is required, and extreme care must be exercised in the design of the individual components to guarantee sufficient life time. This project is concerned with the mechanisms of wear and boundary lubrication of oxide coated rigid magnetic disks. Friction and wear experiments will be conducted on unlubricated and lubricated magnetic medium, and accelerated wear tests will be designed. Analytical surface instrumentation will be used to investigate lubricant distribution on the disk, and theoretical modeling of the head/disk wear mechanism will be conducted.